Supercritical Fluid Studies (Minority Research Initiation)

The objective of the planning project is to develop a program dealing with phase behavior and thermodymnamic models which are capable of describing supercritical fluid behavior. The project will focus on solid-liquid-fluid behavior.